Development of an Environmental Engineering Analysis Laboratory Utilizing Atomic Absorption Spectrometry

An environmental engineering laboratory course is being developed to introduce undergraduate civil engineering students to the laboratory procedures and analytical processes associated with environmental engineering. The intent of the course is for students to examine the scientific principles behind current analytical methodologies and to subsequently have then perform each analysis. Environmental problems within the region are often associated with the pollution of the aquatic environment, particularly by metals, due to the considerable amount of maritime and urban development activity. Instrumental analysis of metals will be an important component of this course and will focus on metal contamination of the aquatic environment. In this regard, samples from surrounding coastal marine and freshwater systems will be sampled by the students and subsequently analyzed. Links between anthropogenic activities and the contamination of aquatic systems will be strengthen through these practical experiences. An enhanced appreciation of this linkage is relevant for civil engineering students since a large percentage enter maritime or urban development-related employment.